Chaotic Vibrations in Mechanical Systems

This project provides for equipment to support experimental research in chaotic vibrations in mechanical systems. The equipment comprises a two-channel dynamic signal processing spectrum analyzer, a laboratory computer, and support equipment for these items. The research goals are to develop criteria for the existence of chaotic vibrations and to develop experimental tools to quantify the chaotic vibrations.